Using Computer Simulations to Enhance International Studies in the Undergraduate Political Science Curriculum

The goal of the project is to increase awareness among social science majors of international relations and foreign policy decision-making. Undergraduate students at the University of Connecticut participate in the simulation by communicating through a central computer located at the University of Maryland via electronic mail and a real-time teleconferencing network.The International Communication and Negotiation Simulation offers students the opportunity to learn the principles of international negotiations: how to bargain, when to compromise, what are the risks and who will benefit. To be effective, the students must learn the importance of teamwork and specialization. Political scientists at the University of Connecticut will also use the microcomputer-simulation facility to assist in the introduction of more international studies into the state high school social studies program. The initial phase of the project will involve high school students working on simulation exercises in collaboration with undergraduates at the University of Connecticut